U.S.-Germany Cooperative Research: Electronic & Magnetic Excitations in II-VI Semiconductors and Their Alloys

This award supports Dr. Anant K. Ramdas and up to three graduate students from Purdue University in a collaboration with Harald Pascher of the Department of Experimental Physics at the University of Bayreuth. The collaboration will study the collective and localized excitations in the ternary and quaternary alloys of II-VI diluted magnetic semiconductors. Experimental investigations will involve spontaneous Raman scattering and coherent Stokes-Raman studies supplemented with modulation techniques, photoluminescence, and Fourier transform spectroscopy. Magnetic interactions in the diluted magnetic semiconductors, controlled by the concentration of the magnetic ions or by the dimensionality in sub-micron quantum well structures manifest themselves in a spectacular manner in numerous phenomena, such as the Faraday and Voigt effect, Raman-electron paramagnetic resonance, and Raman-anti-ferromagnetic resonance.